RIA: Systems and Signals Analysis by Predictive Densities

This proposal deals with the analysis of systems and signals by models. The PI plans to use predictive densities in a Bayesian formalism in order to select the appropriate model from a class of potential models.